Workshop: Design and Manufacturing Education and Research in Germany and the United States, Washington, DC

9416825 Altan This workshop addresses German practices in design and manufacturing related to technical education, training and technology interchange. The attendees will present, review, debate, and summarize the principles which are thought to underlie the perceived success of the German system and relate these principles to the education system in the United States. Recommendations will be made for educational institutions, government agencies, and industry. The purpose of the workshop is to contribute to the acceleration of education and training related to design and manufacturing. It is intended to provide the opportunity for the United States to learn from the German experience and to cause thoughtful consideration of related approaches in the United States.